A Formal Basis for Object-Oriented Modeling Techniques

9803491 The proposed project is concerned with developing a formal basis for object-oriented (OO) analysis and design modeling. There are two major components to the research: OO concept formalization and method development. In the concept formalization phase, core OO modeling concepts and their compositions are identified and precisely characterized, and rigorous techniques for analyzing and refining/elaborating OO models are developed. The focus of the method development phase is on the creation of a rigorous software development method, based on the standard Unified Modeling Language (UML), that utilizes the formalized concepts produced in the previous phase. The proposed research will deepen understanding of OO modeling and analysis concepts, and pave the way for the development of rigorous development methods based on OO modeling techniques. The research is also intended to produce results that can be used as part of the foundation for ongoing efforts at standardizing OO modeling language semantics.***